A Study of Phase Separation in Branching Conduits

This research is an experimental and modeling study of two and three-phase turbulent flows in branching pipelines. Local phase concentrations and interfacial areas per unit volume will be measured as well as the overall split of phases for various branching geometries and flow regimes. Modeling will employ a tau-epsilon approach and population dynamics for coalescening and breaking drops to relate the interfacial area to hydrodynamic conditions. The research might improve our capability to model multiphase flows such as occur in liquid-liquid or liquid-gas chemical processing, thermal hydraulics such as occur in nuclear reactor applications, and flow phenomena associated with accidental release of two-phase fluids.